MGR Honorable Mention: Jose Herrera

This special award will give Ph.D. Student Jose Herrera additional flexibility in pursuing his graduate studies and research initiation in Behavioral Ecology. This award will strengthen minority research participation in this area.//